Joint Meeting of the European and American Associations for Experimental Social Psychology

ABSTRACT A joint meeting of the European and American Associations for Experimental Social Psychology will be held prior to the meeting of the 1992 International Congress of Psychology in Brussels. This meeting will provide an opportunity to bridge the gap between American and European views of social psychological phenomena and facilitate a fuller understanding of human social behavior. The meeting will encourage collaborative research and scholarly communication between the two communities.